Scientific Computing Research Environments for the Mathematical Sciences

NSF proposal DMS-0215392
PIs: Xu, Belmonte, Du, Li and Zikatanov

ABSTRACT

The Department of Mathematics at the Pennsylvania State
University will purchase a 64-node parallel PC cluster
to be dedicated to the support of research and teaching
in the mathematical sciences. In particular, the PC
cluster will be used to support the research projects
of faculty members in the areas of the numerical
solution of partial differential equations in fluid
dynamics and material sciences, and computational
finance and in the studies of general numerical
techniques such as parallel multigrid algorithms and
quasi-Monte Carlo methods. In particular, the projects
include studies of important issues concerning modeling
and simulations of non-Newtonian flows, liquid crystals,
quantized vortices, water waves and fuel cells. Much of
the research efforts rely critically on the
establishment of the proposed PC cluster.

The proposal involves an integrated collaboration
between the numerical work to be performed in the PC
cluster and the experimental work to be performed in
the W. G. Pritchard Laboratories of the Department of
Mathematics. The new equipment will make it possible to
numerically simulate the various complex physical
phenomena observed in the fluid lab and will greatly
enhance collaborations among researchers in computational
and applied mathematics at Penn State. The PC cluster
will also be the basis for the creation of a new
computational laboratory, which together with the
Pritchard fluid lab, will provide a unique environment
for multidisciplinary research as well as for (both
undergraduate and graduate) student training.